BLOCK TRAVEL: The 1994 Power Electronics Specialist Conference, PESC'94. To be held June 20-24, l994 in Taipei, Taiwan.

9412498 Lauritzen This grant will provide travel support for researchers from the USA to attend the 1994 IEEE Power Electronics Specialists Conference, PESC"94. This conference will be held in Taipei, Taiwan during June 20-24, l994. The support will aid US researchers who are personally presenting papers or are otherwise responsible for the technical program of the conference. ***